Acquisition of Super-Microcomputer System for BioengineeringResearch

Computer equipment will be acquired for use in two research programs: dynamic optimization of the human respiratory control system, and estimation of ventilation-to-perfusion ratio distribution of the lung. The equipment will also be used by other researchers and students at this research undergraduate institution.